CAREER: Making Threads More Deterministic by Memoizing Schedules

Multithreaded programs are becoming increasingly critical driven by the
rise of multicore hardware and the coming storm of cloud computing.
Unfortunately, these programs remain difficult to write, test, and debug.
A key reason for this difficulty is nondeterminism: different runs of a
multithreaded program may show different behaviors depending on how the
threads interleave. Nondeterminism complicates almost every development
step of multithreaded programs. For instance, it weakens testing because
the schedules tested may not be the ones run in the field; it complicates
debugging because reproducing a buggy schedule is hard.

In the past three decades, researchers have developed many techniques to
address nondeterminism. Despite these efforts, it remains an open
challenge to achieve both efficiency and determinism for general
multithreaded programs on commodity multiprocessors.

This project aims to address this fundamental challenge. Its key insight
is that one can reuse a small number of schedules to process a large
number of inputs. Based on this insight, it takes an approach called
schedule memoization that memoizes past schedules and, when possible,
reuses them for future runs. This approach amortizes the high overhead of
making one schedule deterministic over many reuses and makes a program
repeat familiar behaviors whenever possible. A real-world analogy to this
approach is animals' natural tendencies to follow familiar routes to avoid
hazards and discovery overhead of unknown routes.

The greatest impact of this project will be a novel approach and new,
effective systems and technologies to improving software reliability, thus
benefiting every business, government, and individual.